RIMI: Antihemorrhagic Activity in Variation in Hemorrhagic Activity of Rattlesnake Venoms & Woodrats Sera

Poisonous snakes use venom for immobilizing and digesting prey. Crotalid and viperid venoms are complex mixtures of toxins and enzymes which are extremely effective in destroying tissue and causing hemorrhage. Physical, chemical, and immunological properties of venom suggest that a number of hemorrhagic factors are present in a single venom sample. Even though many hemorrhagic factors are common to several species of snakes and some of the amino acid sequences are similar, geographical variation in hemorrhagic factors have been demonstrated within certain species. Although envenomation is an effective way to capture prey, we were among the first to show that a number of mammals, such as the opossum and the grey woodrat, exhibit resistance to lethal toxicity, proteolytic and hemorrhagic activities os snake venoms. We have isolated antihemorrhagic factors that are not antibodies in the sera of resistant mammal. The nature of the resistance is significant, since it is broad-spectrum and neutralizes all hemorrhagic toxins tested thus far. The proposed research will expand and correlated the hemorrhagic variation found in rattlesnake venoms (Crotalus sp.) with the antihemorrhagic variation found in resistant animals. The goal of the RIMI proposal is to examine, using recombinant DNA techniques, a hypothesis of correlation between a venomous predator and venom- resistant prey. The information derived from this study will also be crucial to understanding the mechanism of venom detoxification in resistant species and in developing potential uses of snake toxins in medical science such as the production of immunotoxins. The RIMI proposal will expand our present venom research program and more students and faculty will be involved. Both students and the University will benefit by such an expansion. The teaching load is heavy and undergraduate students require intensive training before they are capable of doing meaningful research. Many of our undergraduate and masters' students working under the direction of Dr. John C. Perez have published in professional journals before going on to major universities for doctoral research. With the RIMI program, three additional faculty would be working with minority students in a very active research program.